Fresnel Drag Flow Probe

The objective of this program is to research, develop, and explore applications of a new type of optical flow sensor that can measure ultra-flow volumetric flow rates in real time with three orders of magnitude more sensitivity than the best commercially available mass flow meters (which use acoustic techniques). The performance of this new flow sensor is predicted to rival the best laser doppler velocimetric results in its linear velocity sensitivity. However, it directly measures volumetric flow rates instead of point particle velocities. In addition it should be a much cheaper technology. Such an instrument can find a wide range of applications in materials processing, medical instrumentation, and chemical measurement and analysis, both in terms of serving present needs and in being a new measurement tool for further research within these areas. In this program, we will apply the sensor to directly observe slow flows and diffusions associated with liquid chromatography systems. The sensor concept is based on the relativistic Fresnel drag effect which causes the speed of lig ht to differ between upstream and downstream directed beams. The difference in speed is linearly proportional to the flow velocity and can be measured with extreme sensitivity using a state-of-the-art fiber optics Sagnac interferometer.